Guided Group Activities To Enhance Ways of Learning in Biology: GATEWAY Learning in Biology

Biological Sciences 61

The Guided Group Activities To Enhance Ways of Learning in Biology (GATEWAY Learning in Biology) project is testing the efficiency of GATEWAY activities--in-class, pencil-and-paper exercises done by small groups in a large lecture setting--designed to increase student understanding of three particularly important and difficult challenges for students in introductory biology: understanding the processes of evolution; developing the ability to interpret phylogenetic trees; and appreciating the principles of experimental design. These concepts are fundamental but are particularly susceptible to misconceptions and present well-defined teaching problems.

Intellectual Merit
The work is one of the first examples of "2nd-generation" research in STEM education, where investigators test alternative active learning exercises instead of comparing active-learning to passive-learning approaches. The alternative small-group approaches being compared in the large lecture setting are guided, in-class activities to be completed by groups of 3-4 students. The GATEWAY exercises are being added to a large-enrollment course at the University of Washington (UW) that has already implemented such innovations as peer Teaching Assistants, weekly practice exams, automated response systems (clickers), and inquiry-based labs, but not extensive small-group work. The guided activities are also being tested in a small lecture class at a 2-year community college to ascertain their effectiveness in classes with a different student population, class size, and institutional setting. Involvement of numerous undergraduates in conducting the research is: (1) providing a conduit for student feedback on the design of the in-class activities; (2) exposing students to STEM education research early in their careers; and (3) providing insight into students' thought processes that lead to misconceptions of key concepts in biology.

Broader Impact
The GATEWAY activities developed and tested in this research have the potential to impact the approximately 300,000 students who take introductory biology in the U.S. each year. The use of graduate students as research assistants and undergraduates as research advisors for this study helps broaden the base of young professionals with experience in STEM education research and contributes to the development of a growing and vibrant national STEM education research network.

This project is being co-funded by funds from the Directorate for Biological Sciences, Emerging Frontiers Division.